NSF Support for the 2010 New Security Paradigms Workshop Financial Aid; September 2010; Concord, MA

This proposal requests funding to assist approximately 6 US-based graduate students and junior faculty to attend the 19th annual New Security Paradigms Workshop (NSPW) to be held in Concord, MA, in September 2010. This is a unique meeting that combines scientific talks interleaved with vivid discussions, whose goal is to explore paradigm shifts that disrupt the status quo in security research.

NPSW is thought provoking, research stimulating, and is a highly valuable and unique experience to it participants. The support requested in this proposal will enable the participation of students and junior faculty who would otherwise be unable to attend NPSW.